Topics in the Theory of Computation

This research project spans several distinct but related areas of theoretical computer science. Under investigation are topics in complexity theory, logics of programs and program semantics. Complexity theory topics to be investigated include algorithms for chordal graphs and polynomial decomposition. Finite basis theorems, the propositional mu-calculus and the duality of powerdomains and predicates will be investigated as part of the research program in logics and semantics of programs.